Mechanism of Hypnotic Effects of Benzodiazepines

This project is designed to elucidate the mechanism of action, at the cellular level, of the benzodiazepines, a widely used sleep inducing drug. One possibility is that benzodiazepines induce sleep by interfering with the proper function of calcium channels, which are powerful regulators of neuronal function. The project will involve direct injection of benzodiazepines into several areas of the brain, including those areas where, according to previous research, the drug should act. Also injected in the same areas will be drugs which block the effect of the benzodiazepines, calcium channels, and other drugs which lead to the opening of these channels.